Mathematical Sciences: Differential Equations in the ComplexDomain and Nevanlinna Theory

The principal investigators will continue their successful research program in various topics of current interest in complex fuction theory. In particular, Professor Bank will work on the properties of solutions of complex ordinary differential equations pertaining to growth and oscillation. Professor Kaufman will work on problems involving conformal mapping, measure theory and descriptive set theory and on problems in abstract harmonic analysis. And Professor Wu will work on problems involving Green's functions in multi-dimensional domains and growth properties along certain curves and on problems in parabolic potential theory.